Real-Time Systems Undergraduate Software Development Laboratory

The objective of this project is to establish a Real-Time Software Development Laboratory (RTSDL) to provide undergraduate computer science students with hands-on experience in computer interfacing, hardware links, and the utilization of operating system resources in time-critical application software development. Progress in computer applications has widened the gap between real-world software development needs and most computer science programs, with an emphasis on theoretical foundations and programming skills. Industrial applications require knowledge of the software development lifecycle for time-critical and reactive applications and the ability to utilize operating system resources, including interrupts, concurrence and scheduling, memory management, non-standard input and output devices, interfacing different systems, and programming platforms.